Monoclonal Antibodies against Mating Structures of Chlamydomonas

This is a Research Opportunities for Women Career Advancement Award, to enable Dr. Forest to spend her sabbatical year producing monoclonal antibodies directed against surface components of the mating system in Chlamydomonas. Dr. Forest has developed and characterized an impressive collection of mating mutants in Chlamydomonas; however, it is quite clear that our understanding of the mating system is currently stymied by the lack of biochemical information about this process, and the genetic studies alone are not adequate to address the questions. By obtaining these monoclonal antibodies, Dr. Forest will be in a position to attack the problem biochemically, and make real progress in this fascinating area.